Curriculm Policy Effects on Math and Science Coursetaking, Achievement, and Preparation for College In Chicago Public High Schools

Some of the most prominent efforts to improve math and science learning today focus
simply on students' exposure to curriculum--getting more students to take college preparatory
coursework, while also increasing the rigor of such coursework. Yet, it is not known if just
changing and expanding the courses in which students are enrolled will have a substantial effect
on learning in science and math, particularly as participation expands to students who have
traditionally not been enrolled in such courses, and whether there are potential costs to this
approach. The efficacy of such reforms will likely depend upon the ways in which they are
implemented, the capacity of schools to enact more rigorous coursework without sacrificing
quality, the degree to which students actually receive more challenging and engaging instruction,
and the capacity of students to respond to increased rigor. Extant research does not tell us the
degree to which such curricular reforms improve student outcomes, nor what kinds of students or
schools are best served by such changes in course requirements and offerings.

The proposed research rigorously evaluates the efficacy of large-scale curricular reform
in a large, urban mostly-minority school district, Chicago. Since 1997, Chicago has enacted a
number of curricular reforms aimed at increasing students' exposure to rigorous coursework,
including raising graduation requirements for all students, expanding AP courses in
neighborhood high schools, and requiring double algebra courses for students with low skills.
The researchers already have access to administrative records, elementary and high school
standardized test scores, high school course transcripts, and college records on the population of
students attending Chicago Public Schools since 1991. This allows for a rigorous, longitudinal
analysis of the effects of large-scale curricular reforms on student outcomes, including ACT
scores, course grades, high school graduation, and college outcomes. The data allow for
examination of growth over time of individual students, and comparisons of this growth across
pre- and post-reform cohorts of students. The four investigators on the research team all have
substantial expertise conducting research on high schools and working with schools to make use
of their research. All have very strong statistical skills and substantial experience using the
longitudinal data required for this work.

This study will help guide urban schools as they make decisions about investing
resources into particular courses to enhance student achievement and educational attainment.
increased opportunities for advanced coursework may improve outcomes across the board, but it
is likely that the findings will be more nuanced and complex. This study will also show the
obstacles and costs to implementing rigorous curriculum in schools that have not traditionally
offered such courses. The results will be published in multiple outlets to reach different types
audiences. Reports will be aimed at practitioners, showing the effects of the different types of
curricular reform on student outcomes for different types of students in schools with different
levels of structural capacity, as well as the barriers to implementation. Scholarly articles will be
written to explain the methodology for studying large-scale curricular reforms, and to discuss the
implications for theories on learning and on the effects of school organizational structure.
Members of the research team have a long history of working with the Chicago Public Schools to
incorporate research results into policy and practice. They actively try to present their work in
ways that are accessible to practitioners as well as scholars. The members of this research team
will also share this work with the many organizations and individuals who are working on issues
of high school reform around the country.